RUI: Testing Einsteinian-Newtonian Theories In Strong Gravitational Fields and At Galactic Distances

Two topics will be investigated in this research project. First, to gain a physical insight of Einstein's general relativity (in strong gravitational fields) Professor Esteban will study the bending of light, periastron shift, and time delays near millisecond pulsars and rotating black holes. To this purpose an alternative procedure to the standard methods found in the literature will be developed. Neither spacetime curvature nor relativistic rotational effects will be neglected. Secondly, he will investigate the physical implications of Weyl gravity's linear term in the gravitational potentials of self-gravitating ellipsoids and disks. This is important because in astrophysics, ellipsoids often have been considered as models of galactic bars. To confront Weyl gravity with observations and experiments he will study light bending and time delays by using an exact exterior solution for a static, spherically symmetric gravitating source in locally conformal invariant Weyl gravity. This solution is the analog of the exterior Schwarzschild vacuum solution of Einstein's general relativity. One important aim of this project is to involve physics and mathematics students in undergraduate research experiences. This project will provide talented students with the opportunity for planning, carrying out, and reporting scientific research. By using advanced computational tools, they will develop computing skills needed for their future advancement in science or engineering.